Harnessing disagreement to foster STEM learning in early childhood

Disagreement has multiple facets. While irreconcilable disagreements can be uncomfortable, or frustratingproductive disagreements can move science and societies forward. Research suggests that experiencing empirical disagreement about a factual matter can prompt critical thinking and learning. In real-world classroom settings, however, disagreeing with peers can also be anxiety-provoking or even demoralizing. Despite its importance in science and its potential as a useful tool for science education, there is still a lack of systematic understanding of whether, how, and when disagreement fosters learning: Is empirical disagreement more conducive to learning than other types of conflicting viewpoints, and what learning mechanisms underlie this effect in early childhood? Critically, how does the learner’s social environment modulate the benefit of disagreement on STEM learning? By examining the effect of disagreement on curiosity and evidence generation in preschool to early school-aged children, this project aims to understand how to harness disagreement to foster STEM learning in early childhood. The findings will enhance scientific understanding of the psychological mechanisms underlying both the positive and negative effects of disagreement on STEM learning, and help develop theory-based, empirically-tested principles for implementing disagreement effectively in formal and informal learning environments.

The first aim of this project is to extend prior findings by systematically examining the beneficial effect of empirical disagreement, not only on learning outcomes but also on key learning mechanisms essential to early childhood STEM education, such as information seeking, exploration, and hypothesis-testing. Reflecting the rising popularity of online learning, these effects will be examined using both in-person and online methods. The effect of empirical disagreement will be compared against agreement (consensus) and two other forms of conflicting viewpoints (subjective disagreement and competing hypotheses). A second aim of this project is to better understand how the learner’s social environment might reduce or even reverse the benefit of disagreement on learning, focusing specifically on the role of reputational concerns (e.g., the learner’s desire to “appear smart” or “avoid being wrong in front of others”) as a particularly salient social pressure in STEM classroom contexts. Using well-established methods to elicit reputational concerns in young learners, the project will explore how the pressure to manage one’s reputation can hinder young learners’ motivation to engage in information-seeking, exploration, and hypothesis-testing. Findings will contribute to STEM education research by providing a deeper understanding of the conditions under which empirical disagreement enhances or undermines learning. By identifying when empirical disagreement motivates learners or not, this project will also help educators strategically leverage disagreement in classroom contexts in ways that maximize its benefits and minimize its harm.

This project is supported by NSF's STEM K12 program. STEM K12 program funds fundamental, applied, and translational research in critical areas of STEM education.